STTR Phase I: Ambulatory, Beat-to-Beat Blood Pressure Tracking Enabled by Wireless, Tri-Mode Electronic Tattoos

The broader impact of this Small Business Technology Transfer (STTR) Phase I project is to address hypertension, which affects about 75 million Americans and is the primary or contributing cause of nearly 500,000 deaths every year in the U.S. A high-fidelity and high wearability blood pressure (BP) tracker will help the diagnosis and control of hypertension. The proposed project Advance the design and manufacture of wear-and-forget e-tattoos, a stretchable hybrid electronic device integrating both rigid and soft components on a tattoo-like platform, serving as a model for future soft wearable electronics. In addition to the societal impact of improving the lives of hypertension patients, noninvasive imperceptible real-time BP monitoring would assist many fields related to human health and performance, such as fitness training, sleep studies, and clinical trials for prospective therapeutic treatments.

The proposed STTR Phase I project will develop an electro-mechanical-acoustic cardiac (EMAC) tattoo for continuous and beat-to-beat blood pressure (BP) tracking. The project will develop: 1) A combined hardware and software strategy for motion artifact minimization, long sought for any ambulatory biometrics sensing; and 2) A machine learning algorithm for personalized recognition and warning of abnormal BP events; 3) An integrated systems solution. These innovations together enable the first ambulatory, beat-to-beat ambulatory BP tracking system with high wearability, low motion artifacts, and warning capabilities in an e-tattoo wearable format.